U.S.-Finland Cooperative Research: Fermi Surface Determination of Quasicrystal via Compton Scattering

9978382
Moss
This award supports Simon Moss, Paul Chow, Joseph Kulik, and a graduate student from the University of Houston in a collaboration with Hannu Pekka Suortti at the X-Ray Laboratory at the University of Helsinki, Finland. The project will focus on establishing the existence of a Fermi surface and measuring its dimensions using Compton scattering from selected quasicrystals and related intermetallic structures. A long-range goal is to understand the transport and electronic properties of complex conductors which can eventually include metallic glasses, conducting oxides, and magnetic materials. The collaboration draws on the individual expertise of researchers in the fields of quasicrystals (U. of Houston, Ames Laboratory, and City College of New York) and Compton scattering (U. of Helsinki). The overall scientific benefit of the collaboration to the research community will be to provide important information on alloy physics which would be difficult for any individual group to collect and analyze due to the complicated nature of quasicrystals and the sophisticated techniques required for high-energy Compton scattering.